The Diffuse Interstellar Medium: Temperatures, Magnetic Fields, Superbubbles

AST 0098440
Heiles

The past decade has witnessed a revolution in the data available on the diffuse interstellar medium, with a variety of techniques and a variety of wavelengths. With new radio telescopes at the Arecibo Observatory and Green Bank, West Virginia, the next few years will see an explosion in quality 21-cm spectral line data on atomic hydrogen. Dr. Carl Heiles, at the University of California at Berkeley, will emphasize observations of this 21-cm line with both of these telescopes, and together with a variety of datasets, will attempt to produce a complete, comprehensive picture of the interstellar medium in our Galaxy.
***